Expansion of the NMR Facilities in the Department of Chemistry at Seton Hall University and Acquisition of a 400 MHz NMR Spectrometer

With this award from the Chemistry Research Instrumentation and Facilities (CRIF) Program, the Department of Chemistry at Seton Hall University will acquire a 400 MHz NMR Spectrometer. This equipment will enable researchers to carry out studies on a) proteins and peptides in a bicontinuous lipidic cubic phase; b) synthesis of novel dendritic and hyperbranched polymers; c) preparation of new materials for microlithography; d) synthetic carbohydrate chemistry; e) conformational analysis of polysaccharides; and f) interactions of fluoropeptides with DNA.

Nuclear Magnetic Resonance (NMR) spectroscopy is the most powerful tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances, to characterize specific arrangements of atoms within molecules, and to study the dynamics of interactions between molecules in solution. Access to state-of-the-art NMR spectrometry is essential to chemists who are carrying out frontier research. The results from these NMR studies will have an impact in a number of areas including materials chemistry and biochemistry.